Design Projects for Persons with Disabilities

0201797
Green
This award continues the successful NSF-supported Design Projects' program at North Dakota State University in which students design and build custom projects for individual persons with disabilities. The objectives of the activity are to enhance engineering education, provide students with insight into careers in rehabilitation, improve the quality of life of people with disabilities, and serve the community. The different design projects meet special needs of individuals that are not addressed by commercial devices.

Approximately 40 engineering students participate annually in the Design Projects' activity with facilities provided in three separate laboratories for analysis, prototyping, printed circuit board layout, fabrication, and redesign/development. The engineering students interact with 8 organizations involved with aiding persons with disabilities to identify candidates who would benefit from the program's activities.

Design Projects completed each year of the award are to be published in an Annual Review available at http://nsf-pad.bme.uconn.edu/.